Theory and Applications of Multigrid and Domain Decomposition Methods

There are three areas of research in the project ``Theory and Applications
of Multigrid and Domain Decomposition Methods''. The first area concerns
the additive multigrid convergence theory, which is effective in analyzing
the asymptotic behavior of the contraction numbers of multigrid algorithms
with respect to the number of smoothing steps for boundary value problems
with less than full elliptic regularity. The seminal result obtained by
the PI for V-cycle algorithm with Richardson relaxation as the smoother will
be extended to general smoothers, nonconforming finite elements, the mixed
formulation and the F-cycle algorithm. The second area involves multigrid
methods for stress intensity factors and singular solutions. These are
methods that can take advantage of the form of the solution of the boundary
value problem in the regions where it does not have full elliptic regularity.
Using this approach, usual quasi-optimal convergence rates have been obtained
for simple finite elements on simple grids for boundary value problems on
two-dimensional domains with reentrant corners or cracks. The technically
more challenging interface problems and three dimensional problems will be
investigated in this project. The third area is the analysis of the Finite
Element Tearing and Interconnecting (FETI) method, a nonoverlapping domain
decomposition method in which the (pseudo) inverse of the Schur complement
matrix has to be preconditioned. The goal of this part of the project is to
carry out an analysis of the FETI method and some of its variants within the
framework of additive Schwarz preconditioners, and to investigate
new mechanisms for the global communication among the subdomains.

The methods analyzed in this project are efficient algorithms for the
numerical solution of partial differential equations. Such equations
are extremely important in science and engineering since they are the
governing equations for most physical phenomena. Part of the research
involves the fast computation of stress intensity factors, which are
essential indicators in fracture mechanics. The FETI method to be
studied in this project has already been implemented for large scale
engineering problems using parallel supercomputers with up to a thousand
processors. The advances resulting from this project will therefore
have an impact on many areas of science and technology, such as aerospace
engineering, fracture prediction and fluid flow problems.